REU Site in Novel Materials and Processing

This award provides funding to the University of Illinois-Chicago for a three-year, REU Site in Novel Materials and Processing under the direction of Dr. Christos G. Takoudis. This ten-week summer program, will involve ten students annually in individual research projects covering topics that will include property-based appraches to materials design and manufacturing, facilitated fluidized bed combustion synthesis, measuring activity and selectivity of novel catalytic materials, thin film growth, and nanostructures of colloidal micelles. The students will be provided with a comprehensive research and educational experience in novel materials and processing and will be given ample opportunity to exercise their originality and creativity, to develop enthusiasm for technology development, and to experience technology creation as an exciting and challenging career path.